I-Corps: Translation potential of an antibody-based technology to remove protein-bound uremic toxin during kidney dialysis

This I-Corps project is based on the development of a treatment for kidney failure not addressed by kidney dialysis. Patients with kidney failure depend on dialysis to survive, but some harmful compounds are not effectively removed by current treatment technologies. Certain toxins are too large to be effectively removed by current dialysis technology. As these toxins accumulate, they cause multiple complications in End-Stage Renal Disease (ESRD) patients, including muscle weakness, cognitive decline (including dementia), and cardiovascular disease. This technology is designed to enhance the clearance of these toxins from the bloodstream during dialysis. It has the potential to improve patient outcomes and quality of life, reduce healthcare costs, and create new opportunities in blood purification and kidney care.

This I-Corps project utilizes experiential learning coupled with first-hand investigation of the industry ecosystem to assess the translation potential of a treatment for a contributing factor in End-Stage Renal Disease (ESRD). This technology is based on an antibody specific for Protein-Bound Uremic Toxins (PBUTs). The technology consists of an antibody-based device designed as an accessory to existing dialysis systems for removal of PBUTs during dialysis treatment. The antibody is placed in the dialysate rather than the bloodstream, thereby avoiding direct blood exposure. Under ex vivo hemodialysis-like conditions, this approach has demonstrated the ability to remove more than 60% of PBUTs. Other technologies have shown limited success, while this technology offers a practical strategy that can be integrated with current dialysis platforms. By specifically reducing PBUT levels during dialysis, this technology aims to improve ESRD quality of life by alleviating PBUT-induced toxicities, lowering the complication rates, and reducing comorbidities and mortality among ESRD patients.